Enhancement of Multidisciplinary Science Laboratories Using Computer-Interfacing Technology

Laboratory exercises employing computer-interfaced scientific instrumentation are being developed for nine courses in the Departments of Biology, Chemistry, Physics and Earth Sciences, and Psychology at Moravian College. Enhancement of laboratory experience is the objective of the effort. The anticipated outcome is the education of students who, when confronted with an experiment potentially involving computer assistance, are capable of designing and implementing the experiment in a reasonable and effective manner. This project is directed primarily at students majoring in these scientific disciplines, although non- majors and science education majors will also be affected.